Equipment for a Research-Based Approach to Teaching Hydrology Courses

The Department of Geology is purchasing equipment to support field work in hydrology. The equipment is enabling advanced students to undertake the extensive field work required in modern hydrology studies and integrate the results of field work with existing data from the region. A strong research approach to teaching hydrological principles and procedures is incorporated into all upper division groundwater and hydrology courses.